RI-Small: Graph-Based Learning for Speech Processing

Graph-Based Learning for Speech Processing

Over the past decades much research has been invested in automatic speech
processing, and current speech processing systems often achieve remarkably
low error rates. However, systems are still dependent on matched training and
test corpora, and their performance deteriorates rapidly when faced with
test conditions that differ from the training data. In the machine learning
community, many novel algorithms have recently been proposed to better
incorporate information from unlabeled test data into the learning and
classification process. Most of these techniques scale poorly to large tasks
and thus seem unsuitable for speech processing. This project investigates
the applicability of one recently developed paradigm, graph-based
learning (GBL), for automatic speech recognition. In particular, it
uses GBL as an adaptation framework where acoustic classifiers are
constrained to yield outputs that vary smoothly along underlying data
manifolds characterizing the test data. The project addresses the
core problems of poor scalability and computational complexity of GBL
by using data clustering and subselection techniques as well as
sparse matrix computation. Various ways of incorporating domain
information (e.g. temporal or higher-level prosodic information)
into graph construction are evaluated, including the use of multiple,
combined similarity measures for graph construction. Finally, online,
incremental GBL techniques are being investigated in order to
facilitate real-time processing. The outcome of this project is
expected to significantly improve the accuracy and robustness of
speech processing systems. Furthermore, it will contribute to improving
the scalability of semi-supervised learning algorithms in general and
thus facilitate their application to related pattern recognition fields.